US-South Africa Planning Visit: Turbulence and Mixing in Stably Stratified Fluids

9907932
Van Atta

This award supports a planning visit by Professors Charles Van Atta and James Rottman, Institute for Pure & Applied Physical Sciences, University of California, San Diego, to South Africa in September 1999. The investigators will hold discussions with Professor Derek Stretch and colleagues at the University of Natal in Durban on the possibilities for future collaborative research on turbulent mixing in stably stratified fluids. The specific topic of interest is how temporal and spatial variations affect the structure of turbulence in density stratified flows. It is expected that Professor Stretch will spend some time at UCSD later in the year to perform some experiments. Professor Stretch has considerable expertise in the application of Rapid Distortion Theory (RDT). The Physical Oceanography Program of the Division of Ocean Sciences is supporting this planning visit along with the Division of International Programs.